ITR: A Data Capture Framework and Testbed for Cultural Heritage Materials

This project is a multidisciplinary, international collaborative research project aimed at developing a fully automated robotic system for on demand and batch scanning of print materials and an open-source software framework that will begin with a printed work and end with digital images, text and musical content suitable for digital libraries.